Aerosol Reactors for Ceramic Powder Synthesis

This research is a combined experimental and theoretical investigation of aerosol reactors for synthesis of high quality powders for ceramic applications. The powders to be studied are silicon nitride and various metal oxides. Size distributions of the powders produced will be measured as a function of gas composition, temperature, residence time, and other relevant variables. Powders will be characterized as to chemical composition and crystallinity by atomic absorption spectroscopy and X-ray diffraction. The suitability of the powders for ceramic application will be evaluated in an ongoing study at another institution. The reactor will be modeled accounting for particle nucleation, particle growth by condensation and coagulation, and aggregate shape change by sintering. Aerosol reactors offer exciting processes for producing powders of unique properties for use in ceramic, optical, electrical, or catalytic applications. This research should help in the design and optimization of such reactors.